Rocky Mountain Regional Bioinformatics Conference Support

This award funds travel fellowships to assist
graduate student and postdoc attendees to the
Sixth Rocky Mountain Regional Bioinformatics Conference
to be held Dec. 5-7, 2008 at Snowmass, Colorado.

The Rocky Mountain Regional Bioinformatics Conference
encompasses a variety of topics in bioinformatics
and computational biology including biological
sequence comparison and analysis, metabolic and
other biological networks, genetics, phylogeny,
etc.

For further information on the Sixth Rocky Mountain
Regional Bioinformatics Conference see the URL:
http://www.icsb.org/rocky08/